Environmental Impacts of Next Generation Biofuels

0932606
Landis

The goal of this research is to quantify the water quality degradation tradeoffs associated with 2nd (cellulosic ethanol) and 3rd generation (e.g., algae-produced) biofuels. A Life Cycle Assessment (LCA) framework will be applied. Strategies for avoiding or mitigating unintended consequences of the introduction of 2nd and 3rd generation biofuels will be evaluated. The research targets to inform a more sustainable trajectory for biofuels development in the U.S. The LCA developed within the research effort will be broadly applicable and potentially will guide future assessments of biofuels. Education and outreach will include the incorporation of research into undergraduate and graduate courses.

This project is co-funded by the Environmental Sustainability Program and the Energy for Sustainability Program of the CBET Division of the Engineering Directorate.